Research and Rolling Exhibits (RARE)

The importance of reporting current science to the general public is more important now than ever before. The best way to ensure enthusiastic support for science is to engage the general public as directly as possible. Unlike schooling, learning in a museum is self-motivated, self-directed, and can be lifelong. The partnership between Columbia University's MRSEC (Materials Research Science and Engineering Center) and the New York Hall of Science will do this in an exciting manner by development of innovative 'rolling exhibits' (Discovery Carts) that are visually attractive, intellectually stimulating and demonstrate current research. This project will unite a dynamic University research faculty, dedicated graduate students, and high school teachers from one of the largest and best known teacher research experience programs in the country.

NY Hall of Science, specialists in public science education, have developed exhibitions, over the past 20 years, for school and family group visitors in biology, chemistry and physics. Most recently, the Hall opened an 800-foot biochemistry discovery lab featuring ten experiments that teach visitors about the role of molecules in everyday life. The lab is facilitated by an explainer, and hundreds of families use the lab throughout the year. All exhibits and programs have rigorous science presented in an engaging manner in an educationally non-threatening environment. Columbia University is one of the premier research institutions in the country. Columbia's MRSEC is engaged in multi-faceted educational outreach activities in the New York metropolitan area, including a close working relationship with Columbia's 16 year old RET program. Together these institutions are well situated to involve the research community in public education activities that will inform the public about the current advances in science.

Teachers and graduate students who have worked in MRSEC labs will assist in bringing new skills and ideas to the development of museum programming and exhibits. The teachers have experienced both the research projects first-hand and have had the experience in translating the research into meaningful classroom activities for their students. The graduate students have worked alongside the teachers, assisting them in making the research meaningful to high school students.

Broader Impact: Highly skilled educators who can improve a young person's chances for success are like gold for the nation's schools, which are under pressure for tough accountability standards. Teachers will influence over a thousand students during the course of their careers. The Hall's Explainers are of high school and college age. These two groups will have positive impacts on our society for years to come. They will benefit from participation, and the tens of thousands of visitors to the museum will learn about cutting edge research.